Diagnostic Studies of Interannual Climate Variability in theTropics

This project is on the nature of tropical interannual variability. Since the Southern Oscillation-El Nino (ENSO) is the most prominent mode of interannual variability, it will be the focus of much of the analysis. The effort includes both observational studies and diagnostic studies of General Circulation Model (GCM) experiments. The observational study will span the global tropical belt, while the modeling work will be limited to the tropical Indian and Pacific oceans, and will exploit a new suite of ocean analyses being generated by the experimental GCM operations at the National Meteorological Center. The two specific research thrusts are : (i) the relationship between tropical quasi-biennial variability (QBO) and the ENSO phenomenon, and (ii) the r ole of the Indian Ocean sea surface temperature variability in the ENSO phenomenon. This work is important because it will enhance our understanding of the interannual climate variability in the tropics and may lead to improvements in dynamics extended range prediction for tropics.